MRI: Acquisition of a Primary Cluster for the SIO COMPAS Shared Computer Facility

The proposal requests funding for the acquisition of a high performance cluster supercomputer to support numerical modeling aimed at understanding and predicting physical processes and phenomena in the ocean, atmosphere and land surface. The requested instrumentation consists of 128 dual-socket/dual-core nodes, a front-end node, upgraded storage servers, larger memory (16Gb) postprocessing servers and on-site spares. The cluster, which will serve to update the existing Center for Observations, Modeling, and Prediction at Scripps (COMPAS) cluster, will help support regional to global scale ocean-atmosphere-land modeling, process-oriented modeling of small-scale ocean physics, and process-oriented ocean modeling and state estimation.

Broader Impacts
The existing and proposed instrumentation will provide post-docs, graduate students and undergraduates with hands-on computing skills to enable current and future research efforts. Additionally, the PIs anticipate that the capabilities afforded by the requested instrumentation will be useful in attracting new faculty and supporting collaborative efforts, past examples of which are described in the proposal. Additionally, collaboration with the San Diego Supercomputer Center allows for improvements to cluster management software to be distributed back to the wider cluster community.